Cometabolism of TCE in a Suspended Growth Bioreactor with TCE Mass Transfer by Hollow Fiber Membrane Contactor

This is an award to provide support for preliminary research and planning activities involved in determination of the feasibility of a process to remove trichloroethylene from groundwater contaminated with this organic solvent. The proposed process involves use of a reactor that incorporates a hollow fiber membrane contactor for removal of the trichloroethylene from the contaminated water, concentration of this contaminant in an aqueous phenol solution followed by biotreatment in a suspended growth bioreactor. The proposal leading to this award was submitted in accord with criteria contained in the Program Announcement NSF 92-90, Research Planning Grants and Career Advancement Awards for Women Scientists and Engineers. Results of this project are expected to provide guidance necessary in development of a competitive proposal for conduct of research that would lead to engineering design criteria for a process that could be utilized in decontamination of groundwater.